The Solution of Linear Elliptic Equations Via the Sinc- Galerkin Spectral Method

This ROW Planning Grant is concerned with the development of the Sinc-Galerkin spectral method for the solution of linear elliptic equations on regular domains. Attention will be focused on the construction of the system of discrete equations and on its numerical solution.